Coated Monodisperse Magnetic Nanoparticles

Proposal Number: CTS-0102747
Principal Investigator: S. Majetich
Institution: Carnegie Mellon U.
Title: Coated Monodisperse Magnetic Nanoparticles

ABSTRACT

The proposed project is on fabrication of well-ordered coated monodispersed Fe nanoparticle arrays with enhanced magnetic and electronic coupling between particles. This will result in collective phenomena such as exchange ferromagnetism, insulator-to-metal transition, and extremely large magnetoresistance. The PI is focusing her effort in this project on preparation of ultrathin but impermeable coatings on Fe nanoparticles, precise control over interparticle spacing, nanoscale structure-property relationships and their correlation to larger length scales.